RAPID Deepwater Horizon Oil Spill: Deep pelagic and benthic impacts of the oil spill

Intellectual Merit. Sediment microbial mediated processes are capable of oxidizing oil and methane in the environment. The PI's will examine the impacts of the Deepwater Horizon Oil Spill (hereafter BP spill) on microbially mediated processes in the deep waters and sediments in the vicinity of the spill site. This is an unprecedented oil spill and it is essential to obtain a clear understanding of its impacts on microbial processes in the waters and sediments of the Gulf of Mexico. The work will complement several funded or planned geochemical and microbiological sampling programs focused on the oil spill response. They will evaluate rates of water column methane oxidation and sediment sulfate reduction and methanogenesis at multiple sites around the spill site. Additional experiments will quantify the impact of nutrients, oxygen and substrate concentrations on these important microbially mediated processes.

Broader Impacts: This work will clarify the response of microbial processes in deep waters and sediments to the Deepwater Horizon spill. The project will support a post doctoral associate (female, Hispanic) and an undergraduate student (female, African American). The proposed work is leveraged by NOAA funding which will permit us to expand the number of study sites and number of sampling cruises. A web site will be developed to highlight our work and convey our results to the others in the scientific community as well as to the public.